REU Site: Research Experiences in Computer Science for Students at Undergraduate Institutions

This funding renews a long-running and highly-successful CISE Research
Experiences for Undergraduates (REU) site at DePauw University. The
site exposes students to a range of topics in Computer Science, including
pen-based computing, computer-supported cooperative work, assistive
technology, natural language processing, functional programming
languages, wireless sensor networks, programming pedagogy, parallel
programming, and virtual reality. Students will work in small teams
with a mentor and will experience conducting research as part of a team,
disseminating research results, and participating in a community of
scholars.

This REU site will allow 24 students (over three years) to experience
research in a variety of areas in Computer Science. The site focuses
on recruiting students from undergraduate-only institutions, who do not
have as ready access to research opportunities as students at research
universities. The site’s primary objective is to encourage talented
students enrolled at undergraduate institutions to pursue graduate
studies and research careers in Computer Science.